Spectroscopic and Synthetic Aspects of Alkynes as pi-Base Ligands

This award in the Inorganic, Bioinorganic, and Organometallic Program provides support for an investigation in organometallic chemistry by Drs. Richard S. Herrick and Ronald M. Jarret, Chemistry Department, Holy Cross College. They will carry out a number of projects involving four electron donor alkyne complexes of molybdenum and tungsten bis(dithiocarbamates). New synthetic methods will be developed for complexes containing four types of ligands: bis(alkynes), benzynes, phosphaalkynes, and oxo alkynes. The compounds will be characterized primarily by NMR techniques, and particular attention will be paid to the effect of substituents on the C-C bond. %%% Compounds which contain transition metals associated with carbon-carbon multiple bonds are studied because of their relevance to catalytic processes. In this fundamental research project, compounds containing bonds of this type in differect electronic environments will be prepared and characterized. The work will be carried out by undergraduate students, and some high school teachers and students will also be involved. Thus the work is expected to have both scientific and educational impact.